Short Time Heat Content and the Heat Kernel Asymptotics

Abstract

Award: DMS-9820904
Principal Investigator: Peter B. Gilkey

Gilkey will study time dependent processes which are controlled
by the heat equation and the short time asymptotics which arise
thereby. The first project involves the heat content asymptotics,
moving from the static setting to the setting where the data
(metric, internal heat sources, boundary conditions) are time
dependent. Previous work always assumed smooth boundary
conditions; in this project the boundary conditions are
discontinuous. The second project involves studying the
asymptotics of the short time expansion of the fundamental
solution of the heat equation. Most previous studies have
involved static geometries, but it is natural to study these
asymptotic expansions for time dependent geometries for quite
general operators of Laplace type and for quite general
homogeneous boundary conditions. This investigation will involve
expanding the usual calculus of pseudo differential operators to
establish the existence of the required short time asymptotics as
well as determining how the time dependent variation of the
metric and the coupling constants for Neumann boundary conditions
influences the short time asymptotics of the heat kernel.

There are many physical settings where boundary conditions are
discontinuous. For example, a body floating in ice water
satisfies Dirichlet boundary conditions on the part immersed in
the water and Neumann boundary conditions on the remainder
(assuming as a first approximation that there is no heat transfer
from the air to the body); the boundary conditions are
discontinuous along the water/air interface. Understanding
additional boundary contributions coming from the water/air
interface are likely to be of great physical importance, and
links the differential geometry of the situation to the physical
underpinnings of the subject. There are also many conditions
where the geometry is not static; the Universe is expanding to
cite one example. Boundary conditions in physical settings may
vary with time; for example, the temperature outside a building
varies with the time of day as well as with the season;
consequently the associated heat flow is not well modeled by a
static setting. Understanding the heat flow in this setting has
obvious physical applications. The heat equation asymptotics and
heat content asymptotics have proven to be of central importance
in theoretical physics. For example, these asymptotics play an
important role in the renormalization of field theory in curved
space and also in string and membrane theory, and they are
related to zeta function renormalization.